Study of e+e- Annihilations at CESR using the CLEO II Detector (Physics)

This group will participate in a collaboration of fourteen institutions working at the Cornell Electron Storage Ring, CESR. CESR is presently the most intense source for studying the properties of the b quark. By the end of 1990, CESR will be measuring b quarks at forty times the rate available at other accelerators. Quarks are considered to be amongst the most elementary building blocks of all matter. The b quark weighs about five times the weight of the proton (hydrogen nucleus) and is the heaviest quark ever "observed". Measurements of the properties of the of the b quark are expected to yield a wide range of new physics insights concerning such topics as the origin of the matter-antimatter asymmetry in the universe. The field of research is that of experimental elementary particle physics. This research studies the basic building blocks of matter (e.g., electrons, positrons, quarks, and weak bosons) at very high energies. The experiments use accelera- tors and colliders which provide the highest energy particles made in the laboratory. The data is collected and analyzed using highly complex and sophisticated apparatus and techniques.